Auroral Kilometric Radiation and Transverse Acceleration of Ions in Ionosphere Magnetosphere Plasmas

The aim of this proposal is to explain some of the observed properties of the auroral kilometric radiation (AKR), and to understand some of the processes leading to the transverse acceleration of ionospheric ions (TAI) that eventually populate the Earth's magnetosphere and result in a strong ionosphere- magnetosphere coupling. The analytical and computational techniques that will be used to attain the goals of this proposal include the space-time evolution of instabilities in plasmas, and wave induced chaos in ion dynamics including the novel concept of web stochasticity. AKR has been a source of fascination and extensive study, observationally and theoretically, for nearly twenty years. The data accumulated during this period has provided information about the AKR source regions, the modes and polarizations of the waves, and the particle distributions that exist in and around the source regions. It is generally agreed upon that, since the radiated power in AKR is orders of magnitude above thermal emissions, the source of AKR is plasma instabilities. Theories based upon the electroncyclotron maser instabilities (ECMI), generated by loss- cone electron distributions, have been successful in explaining some of the observed properties of AKR. Thus, ECMI are generally believed to be the source of AKR. However, the traditional analyses of ECMI have failed to provide a clear explanation of some of the important features of AKR that are consistent with observations. The proposed work intends to understand and explain the specific phenomena that have not yet been understood theoretically. A signature of the strong ionosphere-magnetosphere coupling is a series of observations, reported over the past fifteen years, which show that a significant population of the ions in the magnetospheric plasma are of ionospheric origin. In the ionosphere, the ions are observed to be accelerated in a direction transverse to the geomagnetic field. The interaction between ions and plasma waves, that seem to be present in regions where TAI occurs, is believed to play an important role in the TAI. The proposed research is to use concepts of nonlinear dynamics and web stochasticity to understand the acceleration of ions by lower- hybrid wave packets; the observed tail heating of O+ and bulk heating of H+; the ion distribution functions observed during TAI.